Fourier Transform Infrared Spectroscopy in the UndergraduateChemistry Curriculum

The Chemistry Department acquired a Fourier Transform Infrared spectrometer to implement a plan for curriculum reform that encourages students to integrate diverse perspectives within the discipline of chemistry. The spectrometer is used in a three- semester advanced laboratory sequence that combines laboratories from instrumental analysis, advanced organic chemistry and physical chemistry. The spectrometer is also used in a recently revised microscale organic chemistry, an instrumental analysis course for non-majors, and senior student research projects. In addition the Chemistry Department offers a workshop on Analytical Instrumentation for area high school teachers that includes FTIR spectroscopy. The institution contributed to this project in an amount equal to the NSF funds.